Research Experience for Undergraduate in Earthquake Engineering

9908548
Daniel P. Abrams
University of Illinois-Urbana

Supplemental funding is provided in FY 1999 to the University of Illinois @ Urbana-Champaign, Mid-America Earthquake (MAE) Center for the support of ten undergraduate students from the seven core institutions of the MAE Center to participate in summer research projects within the Center.